Presidential Young Investigator Award

This Presidential Young Investigator proposes to study a) Quantum Hall effect, including Ginzburg-Landau theory of the fractional effect and phase transitions between states, including effects of disorder, and b) high temperature superconductors and other strong correlated electron systems, through large-N and other systematic methods.